Workshop on Seismic Design of Solid Waste Landfills

9317931 Martin New Federal minimum design standards for Municipal Solid Waste Landfill Facilities (MSWLF) take effect on October 9, 1993. These standards, as specified in the EPA (Environmental Protection Agency) criteria for municipal solid waste landfills, include minimum design standards for seismic resistance. Little information on the dynamic material properties of municipal solid waste containment systems, or on the performance of solid waste landfills subjected to earthquake loading, is available to the engineer wishing to evaluate the seismic response of Municipal Solid Waste Landfill Facilities. Furthermore, little guidance is available for establishing seismic performance criteria for solid waste containment facilities. The new Federal Municipal Solid Waste Landfill Facilities design standards, know as Subtitle D of the Resource Conservation and Recovery Act, impact the seismic design of landfills in two ways. First, the standards require that landfills be designed for a horizontal peak ground acceleration in lithified rock with a probability of exceedance of 10 percent in 250 years. This provision results in design accelerations in excess of 0.6g in parts of California and 0.2g in many areas of the United States, including large areas on the East Coast and in the Central United States. Second, the standards require that landfills be lined at the base with a composite liner that includes a geomembrane and a 2 foot thick layer of soil with a permeability of less that 10-7 centimeters per second. This provision virtually guarantees a low shear strength at the bottom of the landfill. This combination of a high seismic excitation and a low shear resistance at the base of the landfill make consideration of seismic response an important facet of landfill design in many areas of the Western, Central and Eastern United States. A workshop is being held at the Southern California Earthquake Center in Los Angeles to examine the impact of these new Federa l regulations. The primary results of the workshop will be identification and prioritization of research needed to improve seismic analyses and design of solid waste landfills. The results of the workshop are expected to significantly increase the existing knowledge base on seismic design and performance of landfills through the exchange of information and interaction between workshop participants. The proceedings of the workshop will provide a succinct summary of the state of the art, the state of practice, and the research needs. ***